Purchase of an Electrospray LC-Quadrupole Ion Trap Mass Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Brown University will acquire an Electrospray LC-Quadrupole Ion Trap Mass Spectrometer. This equipment will enhance research in a number of areas including a) the biosynthesis of polyketide and other natural products; b) screening of the activity of a combinatorial library of peptide-based protease inhibitors; c) analysis of complex glycolipids involved in molecular recognition events on cell surfaces; d) investigations of enolate structures; e) analysis of recombinantly expressed proteins used to study biochemical recognition processes; and f) investigations of the structure of adducts that play a role in carcinogenicity.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The results from these studies will have an impact in a number of areas including medicinal chemistry and biology.